A Multidisciplinary Integrated Capstone Design Curriculum for Electrical and Computer Engineering

PROPOSAL NO.: 0230628
PRINCIPAL INVESTIGATOR: Goldsman, Neil
INSTITUTION NAME: University of Maryland College Park
TITLE: A Multidisciplinary Integrated Capstone Design Curriculum for Electrical and Computer Engineering

Abstract

The Department of Electrical and Computer Engineering (ECE) at the University
of Maryland at College Park (UMCP) is in the process of planning a major curriculum
revision for its undergraduate program. This planning grant will address the Capstone design
program, which will be greatly revised to provide a multidisciplinary design experience
for senior students and to integrate juniors and sophomores into the Capstone experience.
The team will assess the outcomes of the Capstone experience to generate data to guide the revision of our curriculum in general.

A major objective of the Capstone design courses is for the students to work on a
design project at a professional level. The project makes use of most of the knowledge
that students have acquired in the previous two to three years of the ECE curriculum.
Therefore, the outcome of the Capstone design experience should be an excellent
indicator of the how well the education process in the ECE Department is preparing
students for their professional career. A year-to-year assessment of the outcomes of the
Capstone design courses will enable us to make continuous improvements in the
sophomore, junior, and also the senior year curricula. This being the case, the revision of
the Capstone program will serve as the engine to drive curriculum revision for the entire
ECE program.